Digital Signal Processing to Compensate for Sensorineural Hearing Impairments

This is a proposal to lay the technological foundation for the development of a state-of-the-art digital hearing aid for individuals with sensorineural hearing impairments, especially those accompanied by "recruitment of loudness". The research is to develop a digital signal processing system to compress speech in order to compensate for the problem. The scheme, based on a model that breaks speech into sinusoidal components, uses an adaptive algorithm with frequency dependent gains and thresholds for the compensation. If successful, the research will have a significant impact on the design of hearing aids.